SSC: Special Project: "Summer Science Camps Accountability Project"

The State University of New York College at Fredonia prepares to advocate the significant impact and findings of the nationwide funded Summer Science Camps (SSC) by publishing the "Summer Science Camp Accountability Document" and disseminating these findings to local, regional, state and nationwide educational, scientific and gubernatorial institutions and organizations to make the SSC experiences widely useful and usable. In view that the NSF sides with and encourages open scientific communication from research and educational activities developed in their funding programs, hence this proposal seeks to achieve these objectives: To have the "SSC Accountability Document" available for potential math and science project directors who want to know and find projects to visit and to work in. To make available the "SSC Accountability Document" to congressional offices, foundations, private corporations, public libraries, postsecondary institutions, and other agencies which want to know what is being done for disadvantages students in interesting them and guiding them toward the fields of math and science as career avenues. To offer the "SSC Accountability Document" to current project directors who want to advertise and distribute their SSC programs to funding agencies and by others as a source of data about their nationwide math and science early intervention programs for disadvantaged students. ***